CAREER: Foundational Problems in Randomized Data Structures

Modern computing relies heavily on data structures, which are algorithms that optimize how programs store and interact with data. But many of the most basic questions that one can ask about data structures remain open. This includes questions about space efficiency, questions about the role of randomness in computation, and questions about what types of data-structural problems we can or cannot hope to solve efficiently. Answers to these questions have the potential for significant impact both on how we build and use data structures in practice, and on how we understand computer science at an abstract level.

The project seeks to address three collections of problems that are designed to improve our understanding of data structures as a field. The first collection focuses on space efficiency, with each problem focusing on the optimal way to store one basic object, either a set, an array, a graph, or a hash table. Each of these problems comes with at least one clear obstacle preventing progress in recent decades. But in each case, there is also reason to believe that one can bypass the said obstacle and get far better space/time bounds than are currently known. The second collection focuses on separations between randomized and deterministic data structures. It is famously conjectured that no deterministic dictionary can match the guarantees of a hash table. Despite widespread interest, there has been relatively little progress on this conjecture. To make progress on this question, the project seeks to first answer even more basic questions such as: Does there exist any abstract data-structural problem (not just a class of data structures) in which randomization provably helps? Finally, the third collection of problems seeks to push the limits of what one can achieve with both randomized and deterministic dictionaries. Even though ``deterministic hash tables'' are widely believed to be impossible, there are a number of related goals that likely are possible, but that computer scientists still do not know how to achieve. This includes, among others, the construction of hash tables with super-high probability guarantees and the construction of linear-time deterministic dictionaries. The insights and results from the project are likely to have significant impact on both the practice and theory of data structure design and analysis.